Collaborative Research: Pleistocene East Antarctic Ice Sheet History as Recorded in Sediment Provenance and Chronology of High-elevation TAM Moraines

Intellectual Merit
The proposed work will investigate changes in the compositional variation of glacial tills over time across two concentric sequences of Pleistocene moraines located adjacent to the heads of East Antarctic outlet glaciers in the Transantarctic Mountains (TAM). The chronologic framework for this work will be generated from cosmogenic exposure ages of boulders on prominent morainal ridges. The PIs hypothesize that variations in till composition may indicate a change in ice flow direction or a change in the composition of the original source area, while ages of the moraines provide a long-term terrestrial perspective on ice sheet dynamics. Both results are vital for modeling experiments that aim to reconstruct the East Antarctic Ice Sheet and assess its role in the global climate system and its potential impact on global sea level rise. The variation of till compositions through time also allows for a more accurate interpretation of sediment cores from the Ross Sea and the Southern Ocean. Additionally, till exposures at the head of some East Antarctic outlet glaciers have been shown to contain subglacial material derived from East Antarctic bedrock, providing a window through the ice to view East Antarctica’s inaccessible bedrock. Till samples will be collected from two well-preserved sequences of moraine crests at Mt. Howe (head of Scott Glacier) and Mt. Achernar (between Beardmore and Nimrod Glaciers). Each size fraction in glacial till provides potentially valuable information, and the PIs will measure the petrography of the clast and sand fractions, quantitative X-ray diffraction on the crushed <2mm fraction, elemental abundance of the silt/clay fraction, and U/Pb of detrital zircons in the sand fraction. Data collection will rely on established methods previously used in this region and the PIs will also explore new methods to assess their efficacy. On the same moraines crests sampled for provenance studies, the PIs will sample for cosmogenic surface exposure analyses to provide a chronologic framework at the sites for provenance changes through time.

Broader Impact
The proposed research involves graduate and undergraduate training in a diverse array of laboratory methods. Students and PIs will be make presentations to community and campus groups, as well as conduct interviews with local news outlets. The proposed work also establishes a new, potentially long-term, collaboration between scientists at IUPUI and LDEO and brings a new PI (Kaplan) into the field of Antarctic Earth Sciences.